Introduction of Biotechnology into the Undergraduate Chemical Engineering Curriculum.

This project will assist the institution in introducing biotechnology into the chemical engineering curriculum. A bench-scale fermentor and ancillary equipment will be coupled to a microcomputer-controlled data acquisition system. This will result in a system that permits students to learn about the special conditions and problems associated with fermentation, an industrially important biotechnology process. The computer controlled data acquisition system will provide flexibility in experimentation, enhance data reduction and analysis, and expose the students to modern instrumentation.